Mathematical Sciences: Geometry and Analysis of Integrable Systens

9404111 Mulase The research covers topics in the geometric theory of infinite dimensional integrable systems with particular focus on the KP heirachy. Techniques involve relating certain differential operators defined on Abelian varities. Matrix integral methods and the geometry of the tau function will also be studied. The research has potential applications to algebraic geometry and mathematical physics, particularly to aspects of soliton theory. ***